US GLOBEC: Interaction of Zooplankton Vertical Migration with Episodic Mesoscale Advective Features: Impacts on Population Retention and Loss

9632746 WISHNER Episodic, advective features may play a major role in the input and loss of zooplankton and larval fish populations on Georges Bank. However, the importance of these mesoscale events has not been quantified directly and may be strongly time-and feature- dependent. The impact is likely to vary with the type of feature and its location, season, and magnitude, all of which will affect the species, abundance, and developmental stages of zooplanton and fish larvae in the feature itself and on the Bank. As part of the U.S. GLOBEC Northwest Atlantic Field Studies, Phase 2 program, this project will determine the association of particular zooplankton species with selected episodic features of opportunity (such as Scotian shelf streamers, slope or shelf water parcels, or warm-core rings) and ascertain how the vertical migrations of zooplankton interact with the flow fields to affect the flux of zooplankton in these features. ***